A Planning Grant for an Industry/University Cooperative Center for Gas Cleaning

The removal of deleterious gas components is usually expensive and necessary to limit environmental impacts. This is especially true in the use of low quality fuel feedstocks. Social concern and Government regulations are causing industry to support research addressing these problems. An Industry/University Cooperative Research Center on Gas Cleaning is a possible approach for industry to support this university research. This planning grant is studying the feasibility and viability of forming such a Center. This planning grant is studying the organizations, policies, and operational alternatives for an Industry/University Cooperative Research Center for Gas Cleaning through a consortium composed of New Jersey Institute of Technology, West Virginia University, Ohio State University, and the University of Illinois at Urbana-Champaign. A study of the research that industry would consider supporting as part of a university research program is also being made. The Principal Investigator and his colleagues are experts in their fields and have the experience and industrial interfaces necessary to conduct this study. This planning grant has been coordinated with Dr. Tapan Mukherjee, CES The Program Manager recommends that the New Jersey Institute of Technology in collaboration with three other universities be awarded $132,000 for a one (1) year planning grant.